Challenges in CISE: Crack Propagation on Teraflop Computers

9726388 Pingali, Keshav Ingrafea, Anthonly Cornell University Challenges in CISE: Crack Propagation on Teraflop Computers This research effort will focus on the design of algorithms and systems to support the numerical simulation of crack propagation problems on parallel computers. The specific focus is on 3-dimensional, time-dependent fracture simulations using unstructured, adaptive grids on the IBM SP-2 and on EARTH-MANNA, a machine based on a fine-grain, multiheaded program execution model. The effort will involve three major tasks: Design and implement 3-D adaptive, parallel mesh generators producing meshes of provably good quality Develop and implement restructuring compiler technology that will support the automatic generation of efficient parallel code, starting equations that arise in the simulation Evaluate the adequacy of existing thread generation and load balancing mechanisms on the parallel platforms, and reimplement those mechanisms for crack propagation studies